Synthesis of Metallic and Multi-Component Nanoparticles from Metallo-Organic Precursors in Matrix-Assisted Laser Ablation

The goal of this research program is to gain a fundamental understanding of the elementary processes and molecular-level mechanisms of the matrix assisted laser ablation synthesis of nanoparticles, and to apply the mechanistic understanding to design and optimize this promising technique for an efficient, controllable, inexpensive, and environmentally friendly generation of nanoparticles. Experimental investigations governing the growth, physical limits, and capabilities of the technique will be guided by the microscopic insights into the mechanisms of nanoparticle nucleation and growth obtained in computer modeling performed with coarse-grained molecular dynamics method. A comprehensive investigation of the atomic/cluster mobility during the process of the explosive disintegration of the target material and the expansion of the multi-phase ablation plume consisting of liquid droplets, matrix vapor, and products of chemical decomposition will provide useful information for several emerging nanoscale materials processing techniques.
This research program is closely integrated with the current educational activities of the PIs in the areas of laser-materials interactions and computational materials science, thus providing immediate benefits for training of graduate students while stimulating related research activities for undergraduates with additional exposure through the REU program. The project will continue a strong existing interaction between the PIs, aiding in the continued development of a core activity on laser-material interactions at the Materials Science and Engineering department. The research results of this project will be integrated into graduate courses on Materials Characterization, Thin Films, and Modeling in Materials Science developed and currently taught by the PIs.